Accurate and Systematic Exploration of Generic Binary Black Hole Systems with Numerical Relativity

When Einstein developed his theory of General Relativity, it came with the prediction that accelerating objects would produce disruptions in space-time called gravitational waves. In 2015, scientists detected such gravitational waves from merging black holes using the Laser Interferometer Gravitational-wave Observatory, providing a new way of studying the universe. Detecting these signals relies upon having accurate predictions of what such gravitational waves should look like. These predictions come from using numerical relativity to simulate merging black holes and the gravitational waves they would emit. In the coming years, gravitational-wave observatories will continue to improve, detecting louder, more frequent signals, and numerical relativity must keep up in terms of both accuracy and parameter space coverage. This award tackles both aspects of this by using machine learning to optimally explore the parameter space of black hole systems and quantifying the impact of the accuracy limitations of current numerical relativity simulations.

As detectors improve, numerical relativity must be prepared to interpret the wealth of high signal-to-noise ratio observations expected. The first part of this award will study the eccentric binary black hole parameter space more fully and efficiently by creating a neural network to predict the similarity between waveforms produced by different binary systems. The computational nature of numerical relativity can introduce systematic biases, so the second part of this award will quantify the accuracy limitations of numerical relativity and their impact by injecting high-resolution numerical relativity simulations as mock signals and performing parameter estimation on them with a localized suite of lower resolution simulations. The final project of this award will expand the MAYA catalog of numerical relativity waveforms to make strides towards the goal of having dense, accurate catalogs of numerical relativity waveforms, crucial for gravitational-wave data analysis. This award will also facilitate the production of new visualizations to engage with the public and train new students, as well as the production of new educational material about gravitational physics.